Promoting Reflective Inquiry in Knowledge-Rich Investigation Environments

9720377 Reiser In this 36 month project, the PIs develop an Instructional model of reflective inquiry, including a description of the cognitive strategies that comprise reflective activity in scientific inquire and principles for their instruction. The project also develops software and curriculum that will enable the investigation and evaluation of this instructional model in real-world classrooms. The instructional model accounts for the following elements: cognitive strategies for reflection, strategic timing and initiation of strategy use, and beliefs that support reflection. It provides a framework for designing supports for reflection through social structures, tools, and artifacts. The model is used to guide the design of an inquiry-support environment called the Progress Portfolio, which will work in conjunction with third-party investigation software. The Progress Portfolio provides support for reflection by giving students mechanisms for turning their work products and processes into explicit objects for reflection. Ongoing empirical studies with the software and curriculum will lead to improvements in the design of the software and curriculum and refinement of the instructional model.